Fullerenes: Reactivity, Supramolecular Interactions, and Devices

Professor Luis Echegoyen of Clemson University is supported by the Analytical and Surface Chemistry Program to study the electrochemistry of fullerene compounds. Within this theme, there are four areas proposed: reactivity of electrochemically induced reactions, including photovoltaic applications, preparation of new crystalline materials and metal ion endohedral complexes. The reaction mechanism to be studied is the removal of certain cyclopropane adducts from methanofullerenes.

The field of fullerene chemistry including electrochemical study has grown since the discovery of this new carbon form just over a decade ago. New materials with potential for energy storage and sensors are beginning to emerge from this research endeavor.